Combined Infrared and EPR Studies of Photochemically Generated Free Radicals in Low-Temperature Solids

In this project jointly funded by the Division of International Programs and the Experimental Physical Chemistry Program of the Chemistry Division, Professor Charles Wight of the University of Utah will collaborate with E. Y. Misochko of the Institute of Chemical Physics in Chernogolovka, Russia. In this program Fourier Transform infrared (FTIR) and electron paramagnetic resonance (EPR) spectroscopies will be used to study photochemical reactions of F and H atoms with simple molecules in low-temperature matrices. The expertise of the investigators is complementary, with Wight responsible for the FTIR experiments and Misochko for the EPR. Through this collaboration these researchers will be able to formulate a comprehensive description of hot atom mobility, diffusion of thermalized atoms, and atom-molecule reactions that occur in the restrictive environment of low-temperature solids. Thin layers of solid `noble gas` matrices at very low-temperatures are an ideal vehicle for containing highly reactive or transient chemical species so that they can be studied using a technique called matrix isolation spectroscopy. Using this technique the mechanisms by which a number of chemical transformations occur can be unravelled and examined. Examples of such reactions are polymerization, explosive decomposition, and combustion. Through this international collaboration, the complementary resources of a Russian and an American investigator will be combined to produce a more complete picture of these types of processes than might be obtained by either scientist working alone.